Engineering and Modern Society: A Freshman Course

The goal of this program is to develop an introductory-level course in engineering aimed at freshman engineering students but open to all students. The new course, made up of a series of integrated teaching units, focuses on the total system within which modern engineering operates and on the centrality of innovation for engineering. The course also introduces students to techniques for more effective communication through written and visual means. In addition to the teaching units and the course itself, a network of teachers is established to disseminate the new materials. These materials introduce students to the scientific basis for engineering, the social context within which modern engineering arises, and the intimate relationship between engineering and modern culture.